Creating Metadata Standards for Animal Behavior: Conference Feb 2004

Numerous databases, rich media archives, and educational projects focused on
animal behavior are now Internet-accessible. However, each site has adopted
its own vocabulary for cataloging its resources and there is currently no
mechanism to translate between them. This project funds two successive
workshops to create an international metadata standard that will allow users
to search across all of these sites and locate similar resources regardless
of local catalog names and structures. The meetings will convene experts in
animal behavior, zoo management, conservation, and metadata architecture to
create a draft standard and design protocols for crosstalk between each
database and the standard. The drafts will be circulated through relevant
newsletters, journals, and at society meetings worldwide for review and
comment. The second workshop will pool comments from all of these sources
into a final draft to be mounted on multiple websites and advertised in
suitable journals. This project is a key step towards providing worldwide
but integrated access to the increasing diversity of animal behavior
archives by students, educators, researchers, conservation and wildlife
management staff, zoos and aquaria, and both public and commercial media.